2010-11 Annual Program Meetings Within the Engineering Directorate

This award provides funding in FY 2010 to Ann Becker and Associates, Inc. (ABA) to provide conference planning and support services to the Engineering Research Centers (ERC), the Industry/University Cooperative Research Centers (I/UCRC), and the Emerging Frontiers in Research and Innovation (EFRI) Programs during FY 2010 and FY 2011.